Engineering Research Equipment Grant: Phosphides by MBE

A molecular beam epitaxy (MBE) system will be purchased and used to grow phosphides of the III-V semiconductor family. A new research program in MBE will concentrate on the growth and characterization of heterojunction structures employing thin epitaxial films of the phosphides InP, InGaP, and InA1P. The resulting heterostructures will provide an opportunity for study of unique heterojunction band structures as well as applications to devices requiring III-V phosphide layers.